RUI: A Double Vertex Search for Neutral Heavy Leptons at Fermilab

***
9804866
Koutsoliotas
In this RUI proposal, Professor Koutsoliatas requests support for her participation in the NuTev Collaboration at Fermilab with a focus on a search for neutral heavy leptons. The existence of such particles would have great significance to the field, and profound implications for the Standard Model.
***